Presidential Young Investigator Award: Colloidal Interfacial Phenomena

Narrative: The influence of surface chemistry on the growth of colloidal particles and on the behavior of model suspensions will be investigated. Recent advances made in the laboratory of the principal investigator in understanding the effects of particle interaction potentials on the morphology of precipitates will be extended to conducting polymer materials. In this work, the mechanisms of formation of analine and pyrole polymer particles will be investigated to establish methods of synthesizing model conducting polymer colloids. The resulting particles will be used in fundamental studies of the electrical, optical and suspension behavior of this unique set of materials. A second line of approach to understanding the influence of particle surface properties on suspension behavior will be to unravel the effects of interaction potential and suspension structure on the rheology of flocculated materials. By working with model electrorheological fluids which flocculate reversibly in the presence of an electric field, reproducible suspension structures can be obtained and the degredation of this structure by shear carefully studied.